Development of Selective Connectivity in a Simple Nervous System

The goal of the research to be performed by Dr. Murphey is to understand how synapses are stabilized during synaptic rearrangement in the nervous system. The synaptic assembly process is a dynamic one involving both the pre- and post synaptic cells. During the previous funding period, Dr. Murphey gathered remarkable results suggesting that the strength and short term plasticity of synapses can be controlled by the postsynaptic cell. Dr. Murphey will now concentrate his studies on the role of the postsynaptic cell in the process of synapse assembly. He will utilize electrophysiological techniques to describe short and long term plasticity at synapses that are constantly being altered. In addition, pharmacological tools will be used to block neurogenisis or neural activity in an effort to explore the mechanisms underlying synapse stabilization and destabilization. Finally, Dr. Murphey will use computational tools to explore the consequences of synaptic rearrangement for circuit function. Results obtained from this study will add significantly to our knowledge of what interactions are involved in the assembly of synapses.***